Ohio Mathematics/Science Discovery Project

The State of Ohio proposes a Statewide Systemic Initiative to improve the educational outcomes in mathematics and science by creating a framework and process for the pre-service education and sustained professional development of middle school and junior high school mathematics and science teachers. The initiative is to be implemented through ten regional centers which are to be established and staffed by teams which include scientist/educators and teacher-leaders and which emphasize inquiry-based instruction. The centers will utilize research strategies that assess changes in student learning; perform additional research to focus on the adaption or creation of new inquiry-based instructional materials; and provide ongoing support to practicing teachers. Cost Sharing: 300%.